Controlled Interactions Between Large Coherent Structures inan Axisymmetric Jet

This experimental and theoretical research deals with acoustic control of coherent structures in a jet. The focus is on helical disturbances and the interaction between various disturbance modes, emphasizing those without cylindrical symmetry. The disturbances which are to be exited through acoustic means will cause distortion in the originally circular cross-section of the jet. Such distortions are know to strongly enhance mixing. Thus, this investigation may ultimately produce efficient and low-power control schemes based on sound irradiation to enhance mixing and/or combustion.